Research Experiences for Undergraduates in Chemistry at the University of Oregon

Professor Geraldine L. Richmond and other members of the Chemistry Department of the University of Oregon are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. For the period of 1990-92, ten (10) undergraduate students will spend ten (10) weeks each summer actively engaged in a variety of research projects in the Chemical Physics Institute. Projects range from mass spectroscopy of hypervalent ions and radicals and Raman spectroscopy of clathrate hydrates to theoretical calculations of correlation effects in atoms and molecules. Students will also participate in research seminars, weekly meetings and a summer research retreat.